Journey to the Center of the Cell

9355741 Olejniczak The Carnegie Science Center (of Carnegie Institute) and Carnegie Mellon University (Center for Light Microscope Imaging and Biotechnology, a National Science Foundation Science and Technology Center, and The Studio for Creative Inquiry) have initiated a collaborative project that portends to change in a dramatic fashion the planetarium theater as a tool for informal science education. After several months of preliminary discussions and, now, the beginning of work, the creative team has been assembled that is defining the vision and executing the program of this exciting project. The vision being formulated is the transformation of The Henry Buhl Jr. Planetarium into a new visualization environment to achieve an interdisciplinary and interactive group learning experience. We call this new concept the "Group Immersive Visualization Environment (GIVE). GIVE will accomplish much of the impact of virtual reality by combining "three-dimensional" images generated by Evans & Sutherland's Digistar Projection System with real and animated, high-resolution video computer images and multimedia and by providing direct audience-control of program direction via The Henry Buhl Jr. Planetarium's elaborate 156-seat, electronic response system. While we anticipate the eventual production of a series of programs in a variety of subject fields, the first to utilize GIVE will be "Journey to the Center of the Cell," a 35-minute presentation. The treatment will convey an experience of self-discovery and natural wonder as audiences transport themselves through striking visualizations of the living cell. Production and evaluation of "Journey to the Center of the Cell" and the development of the Group Immersive Visualization Environment will occur under the auspices of staff of The Henry Buhl Jr. Planetarium, key personnel from Carnegie Mellon University, evaluator Harris H. Shettel, and an Advisory Panel consisting of key planetarium and eductional profes sionals. Program production packages, incorporating compatible components of "Journey to the Center of the Cell," will be produced, marketed and distributed to public and school planetariums; and a Teacher Resource Kit containing supplementary educational materials in the form of video tapes, CD-ROMS and computer disks wil extend the program's reach into the classroom. Special relationships and viewing times will be offered at The Henry Buhl Jr. Planetarium targeting Pittsburgh inner city schools and regional districts containing large percentages of underserved and minority students.